Polymorphism, Types and Higher-Order Procedures, in Programming Languages

Three general classes of problems will be investigated, as a guide to programming language design and implementations: (1) typically in polymorphic functional languages as well as in restricted versions of the second-order -calculus, (2) comparing and calibrating the computational power of higher-order programming features (polymorphic or not), and (3) transaction of higher-order programming features into others (polymorphic or not). Principal topics include: generalized type structures, especially polymorphism; automatic type reconstruction and its relation to generalized forms of unification; decision procedures, and evaluation strategies for imperative languages with higher-order procedures.